REG: Modelling and Visualization in Aerospace Engineering

9424385 Domaradzki The Department of Aerospace Engineering at the University of Southern California will purchase computing and visualization equipment dedicated to support computational research in engineering. The equipment will be used for several research projects, including: subgrid-scale modeling based on properties of energy transfer in turbulent flows, a computational investigation of swirling jets, a study of spray dispersion in free shear flows, numerical modeling of oceanographic convection in the polar regions, wave interactions in weak turbulence models, and a study of nonlinear ring defects and their dynamics. ***